3rd International Workshop on Future Information Processing Technologies; August 24-27, 1999

9908635
Cavin
The objective of the 3rd IWFIPT is to examine the push and pull between microelectronics technology and emerging application areas to obtain a sense of future technology trends and capabilities. Leading contributors will describe their views on hardware performance and functionalities needed in the information society of the future. These projections will be juxtaposed with anticipated trends in microelectronics and with potential "radical "technologies arising from advances in carbon-based materials, quantum physics, molecular nanotechnology and other areas. A synthesis of views is planned to identify trend feeding, trend fighting and trend setting microelectronic technologies that are likely to emerge over the next few decades.
***